Group travel of U.S. participants attending 1st World Congress of African Linguistics (11-16 July 1994) in Johannesburg, South Africa

9321391 REYNOLDS ABSTRACT This grant will be used to support the travel of approximately five American scientists to participate in the World Congress of African Linguistics, Johannesburg, South Africa, July 11-16, 1994. ***